Research in Geometric Group Theory

An exciting recent development in geometric group theory is Zlil
Sela's beautiful work on the Tarski problem. This problem asks whether
the elementary theory of a non-abelian free group is independent of
the free group in question. Feighn proposes two projects in this
direction, both joint with Mladen Bestvina. The first is a
continuation of a project to simplify Sela's work. In the second,
representing a new direction, a solution to a modified form of
Tarski's problem is proposed. This will lead to new information about
definable sets (objects of primary importance) and will answer
questions of Rips and Sela. A third proposed project is to explore the
extent to which the JSJ-decomposition of a group can be found
algorithmically. The specific class of groups to be examined consists
of graphs of free groups, which are of current interest on a number of
fronts. With Guo-An Diao, the principal investigator has shown that
the Grushko decomposition (a coarser decomposition than the JSJ) of
these groups can be found algorithmically. There are two possible
satisfactory resolutions, namely a construction of an algorithm to
produce the JSJ-decomposition of a group in the class or a proof that
this problem is unsolvable. For this class of groups, which exists on
the boundary of what can be understood algorithmically, either
resolution would be important.

Geometric group theory is a relatively young branch of mathematics
that uses geometric methods to understand groups. The idea to take a
problem in group theory, translate it into a problem in geometry, and
then use geometric methods to solve the translated problem. The
principal investigator proposes to use geometric methods to explore
two general areas. The first is motivated by Zlil Sela's geometric
solution to the Tarski problem which on the face of it is a problem in
the intersection of group theory and logic. Roughly, the problem is to
distinguish groups using the truth of statements formed using only the
usual symbols of logic ("there exists", "for all", variables, etc) and
group operations. For example, you can tell if a group is abelian by
asking whether it is true that, for all elements x and y, xy=yx. The
first proposed project, joint with Mladen Bestvina, is to simplify and
extend Sela's ideas. This project is ongoing and there has already
been significant progress. The second proposed project follows another
trend in group theory that is encapsulated by the question: How much
group theory can a computer understand? Much as molecules can be
decomposed into simpler pieces (atoms), groups can be often be
decomposed into simpler groups. The project is to understand such
decompositions for a class of groups called "graphs of free groups", a
class which has attracted much recent attention. It turns out that
decomposing groups translates into the geometric process of cutting a
space into simpler pieces. The goal is to use this geometric idea to
discover an algorithm that, given a group, finds its decomposition.
The principal investigator, with Guo-An Diao, has already constructed
an algorithm for a related process that can readily be implemented on
a computer.